CPS: Medium: Collaborative Research: Dynamic Routing and Robotic Coordination for Oceanographic Adaptive Sampling

The objective of this research is the design of innovative routing,
planning and coordination strategies for robot networks, and their
application to oceanography. The approach is organized in three
synergistic thrusts: (1) the application of queueing theory and
combinatorial techniques to networked robots performing sequential tasks,
(2) the design of novel distributed optimization and coordination schemes
relying only on asynchronous and asymmetric communication, (3) the design
of practical routing and coordination algorithms for the USC Networked
Aquatic Platforms. In collaboration with oceanographers and marine
biologists, the project aims to design motion, communication and
interaction protocols that maximize the amount of scientific information
collected by the platforms.

This proposal addresses multi-dimensional problems of relevance in
Engineering and Computer Science by unifying fundamental concepts from
multiple cyberphysical domains (robotics, autonomy, combinatorics, and
network science). Our team has expertise in a broad range of scientific
disciplines, including control theory and theoretical computer science and
their applications to multi-agent systems, robotics and sensor networks.

The proposed research will have a positive impact on the emerging
technology of autonomous and reliable robotic networks, performing a broad
range of environmental monitoring and logistic tasks. Our educational and
outreach objectives are manifold and focus on (1) integrating the proposed
research themes into undergraduate education and research, e.g., via the
existing NSF REU site at the USC Computer Science Department, and (2)
mounting a vigorous program of outreach activities, e.g., via a
well-developed collaboration with the UCSB Center for Science and
Engineering Partnerships.